Molecular Neurobiology of 2', 3'-Cyclic Nucleotide 3'-Phosphodiesterase

This research is focussed on the possible function of an enzyme found in the oligodendrocytes, the most common type of cells in the brain of vertebrates. The function of the enzyme is not known, but there is some circumstantial evidence that it may be important in the formation of multilamellar structure such as myelin. The enzyme is an extremely active phosphodiesterase but it is not known which nucleotides are cleaved by it. The binding of the native enzyme to radioactive cyclic nucleotides will be tested, in an attempt to determine which of these nucleotides binds specifically. In addition, the specific association of this enzyme with some cells constituents, such as microtubules and ribosomes will studied. Thus, these studies should provide accurate information on the specific substrate of the enzyme as well as on its localization, and therefore shed light on its function.